Enhancing NSDL.Org with Concept-browsing Interfaces based on AAAS Strand Maps

The project is building on work done under a previous award that created strand maps based on AAAS Benchmarks for Scientific Literacy and successfully used them through the DLESE interface. Using the existing Strand Map Service a concept browsing interface is being created for NSDL.org. The interface is benefiting K-12 learners and educators. Concept browsing allows teachers to find educational resources that support learning goals and standards and their interconnections. In conjunction with development of the concept browsing interface, the Core Integration team is gaining the necessary expertise to support future Strand Map Service. The NSDL Core Integration Team is providing six months of developer time in order to ensure that concept browsing will, over time, be extended throughout the digital library.